Partial Support for Publication of Proceedings of the "Strings 90" Meeting; College Station, Texas; March 1990

"Strings '90," a conference dealing with various aspects of the superstring theory of elementary particle physics, was held March 12-17, 1990 at Texas A&M University. The conference brought together many leading experts, both junior and senior, in superstring theory to discuss recent developments and future directions. While superstring theory is potentially the answer to the very fundamental question of how one may describe and unify all of the fundamental forces, including gravity, itis also dauntingly difficult, and interactions which can take place at conferences such as this one are very important to progress in the field. Also important is the publication of a proceedings which will make the developments reported at the conference accessible to the many unable to attend. The creation of the proceedings is the project supported by the present award.